Contributions of IT Investment to Economic Performance

The project will (1) assess the efficiency and effectiveness of investments in information technology (IT); (2) identify the organizational and IT management practices associated with achieving greater value through IT, and (3) disseminate result in academic, business and policy circles. These issues will be addressed at firm, industry, and country levels, based on several large, detailed, longitudinal databases that will be coupled together for more robust analysis than was heretofore possible. The study will include data on IT in five to 15 industry sectors in 50 countries from 1980-95, and on 200 large US firms for the 1990-95 period. Existing databases will be updated annually, and new databases will be built. The study will shed new light on whether, how, and why IT makes a difference in effectiveness and efficiency across a global spectrum of use, helping to clarify our understanding of the well-known "productivity paradox". It will produce a definitive body of research that uncovers the potential payoffs from IT investment and illuminates the mechanisms by which they can be harnessed.